Systematic Procedures for the Design of MultiProduct Plants,Multipurpose Plants, and Plant Complexes

The goals of this research are to develop systematic synthesis procedures and short-cut evaluation techniques for the conceptual design of multiproduct and multipurpose plants which involves breaking the problem down into a hierarchy of abstraction spaces, where each level in the hierarch contains more detail than the level above it but less detail than the level below it. The most important features of the solution are considered first, then the solution is developed by adding layers of less important details to the partial solution that was developed at previous levels. The PI uses this techniques and has already shown that decisions made at lower levels in the hierarchy never reflect back on earlier decisions eliminating the problem of conflict resolution. A systematic procedure for synthesizing petrochemical processes where multiple products are produced simultaneously but where the market demand does not correspond to the product distribution produced in a single pass through the reactor (e.g. glycols and amines) would be a very valuable process design tool. Similarly, in some cases it might be advantageous to produce more than one product by different chemical routes in the same equipment, where each product is made for only part of the year. Multipurpose plants often, but not always, run in a batch mode are needed for such operation. The third category of problems to be addressed in this project is the design of plant complexes, i.e. the design of processes to produce reaction intermediates, and then use the intermediates to produce a final project. The development of all of these algorithms would be valuable not only because a more efficient design procedure would be available but also as teaching tools for the instruction of design to undergraduates.